A Workshop: Assessment and Evaluation of the Program for GEE for Women, Minorities and/or Persons with Disabilities, April 1992

The objective of the Graduate Engineering Education (GEE) Workshop at Georgia Tech is to evaluate the GEE program in terms of program content, management, and overall success in achieving the program's goals. In addition the workshop will provide recommendations for improving the participation of women, minorities, and persons with disabilities in doctoral programs. Representatives of the 24 participating universities and students will be invited.